Transient Electrochemical Behavior Under Conditions of Convergent Diffusion

This research, supported by the Analytical and Surface Chemistry Program in the Chemistry Division, will develop theoretical methods for describing potential step and scanned potential electrochemical methods. Integral equation methodology is employed to describe the current at ultramicroelectrode arrays as a function of time. Collaboration between Cope (applied mathematics) and Tallman (chemistry) results in modern numerical methods for describing short time (and thus rapid) electrochemical processes. Diffusion to various shaped electrodes will be explored. %%% Ultramicroelectrodes can probe tiny volumes for oxidizable or reducable species, and are used to study neurochemistry and other microscopic environments. Cope and Tallman are studying the theory of electrochemical measurements at such electrodes. Understanding of the temporal evolution of current at microelectrodes allows one to separate that part of the current due to mass transport (diffusion) and that due to reaction kinetics. The latter, in turn, can reveal chemical dynamics information unique to particular species.